SHF: SMALL: Practical Linear Types for Safe Protocols

Software errors frequently arise because a component of the program does
not correctly follow a well-defined protocol for accessing some stateful
resource. Common examples include programs that misuse resource handles
provided by the operating system, incorrectly deallocate the same memory
or other resource multiple times, or fail to properly sequence calls to
a complex program module. Such protocol violations lead to software
crashes or unintended behavior, potentially with disastrous
consequences.

The project objective is to develop programming language technology to
allows software developers to conveniently describe protocols over
stateful resources. This technology will uncover such bugs at design
time by statically checking whether the program is appropriately
following the desired protocols, thereby ruling out the wide class of
software flaws. The new language mechanisms will be general purpose,
practical, and suitable for use in a wide variety of applications
ranging from memory management to traditional protocol implementation.
The researchers will create a compiler infrastructure prototype and
establish the correctness of the approach by a machine-checked proof of
type soundness. The primary broader impact of the project is the
development of technology to help eliminate such programming errors
early in the software-design life cycle to decrease the cost of building
correct, reliable software.